Computer Science, Engineering & Mathematics Scholarships

This program provides academic and financial support to talented low-income students in applied computer science, mathematics, and industrial computer systems. Program objectives include expanding the professional development opportunities for students, strengthening partnerships between the university and employment sectors related to the targeted disciplines, and retaining project students at a rate that exceeds the retention of non-project students in the same disciplines. Student support structures include group meetings, faculty mentors for scholars, involvement in professional organizations, industrial internships, and shadowing of working professionals in industry.